CAREER: Cooperative Communication Systems: Resource Allocation, Self-Organization, and Synchronization

The key to reliable communications over wireless channels is diversity.
Of the various methods used to achieve diversity, spatial diversity
through the use of multiple transmit and/or receive antennas is
particularly attractive in that it does not require additional
bandwidth or loss of transmission rate. Spatial diversity does,
however, require the use of multiple antennas which must be separated
by at least a few wavelengths in order to be effective. This physical
constraint precludes the use of spatial diversity in many scenarios,
but recently, researchers considered this problem in the context of
multiuser communication systems in which there may be multiple sources
and/or destinations each with only a single antenna. In these types of
systems, communicating nodes can form "partnerships" to achieve a new
kind of spatial diversity: "user cooperation diversity". Nodes in a
partnership pool their antenna resources to form a virtual antenna
array and many of the benefits of spatial diversity are achieved
without the need for a "real" antenna array.

While user cooperation diversity can provide many of the advantages of
antenna arrays to devices that would otherwise only have access to a
single antenna, the implementation issues are significantly different
than those of antenna arrays. Unlike a traditional antenna array, the
nodes in a cooperative partnership are at least semi-autonomous in the
sense that they each typically have their own local resources,
quality-of-service requirements, and timing references. This project is
centered around the questions created by the inherent autonomy of nodes
in cooperative multiuser communication systems: how to initiate and
maintain cooperative partnerships, how to optimally allocate resources
in cooperative partnerships, and how to synchronize cooperating nodes.